CT-ISG: Towards Trustworthy Peer-to-Peer Overlay Networks

Proposal: 0715833
CT-ISG: Towards Trustworthy Peer-to-Peer Overlay Networks
Sanjay G. Rao
Purdue University

This project seeks to create trustworthy peer-to-peer overlay
systems through fundamental advances to the state-of-the-art
in the design of Internet-scale, overlay networks for performance-demanding
applications in the presence of adversaries.
Design limitations in popular peer-to-peer systems today may be
exploited to cause large-scale denial of service attacks on nodes
not even part of the overlay system. Further, adversaries may
control the overlay construction to create a crippling impact on
application performance. To tackle this, the project will
(i) Design robust and attacker resilient adaptation protocols
contributing to an emerging science of trustworthy adaptability
that defines a new shift in building distributed systems;
(ii) Obtain fundamental insights into the interplay between the design
of group management algorithms and their vulnerability to being
exploited to launch distributed denial of service attacks on the
Internet; (iii) Explore the interactions between peer-to-peer design,
resulting traffic characteristics, and implications for distinguishing
normal peer-to-peer traffic patterns from anomalous ones;
and (iv) Design mechanisms for reliable, scalable and
adversary-resilient key dissemination to help ensure confidentiality and
integrity of application-specific data.

The project will demonstrate and validate the novel proposed mechanisms in
the context of mature and widely deployed peer-to-peer systems.
Peer-to-peer video broadcasting will be used to
promote online education in the Lafayette area, and to
broadcast a security-related seminar series.
The project will benefit the design of large-scale testbeds such
as GENI. The PIs will communicate with developers of popular
peer-to-peer systems to alert them to critical design vulnerabilities in
their systems.